UMEB: Ecology, Evolution, and Conservation Biology in the Pacific

DEB-9975287

The high levels of endemism in the insular Pacific create a situation where environmental concerns are of critical importance. Despite these concerns, environmental biology is not often considered as a viable career option by Pacific Island peoples. This project would develop an undergraduate program in ecology, evolution, and conservation biology to increase the participation of students in these areas throughout the Pacific. It will develop a primary collaboration among three primary academic institution: the two main campuses of the University of Hawaii (UH), in Manoa and Hilo, and the University of Guam. This project will foster environmental training by coordination with two existing environmental resource management programs: The UH Hawaiian Internship Program and the Micronesia and America Samoa Student Internship Program. Students will be recruited throughout the Pacific. They will be able to interact from widespread institutions using a sophisticated distance learning technology available at UH. This project will greatly increase the number of Pacific Island people pursuing advanced training in environmental biology.